International Geographic Linkages of Venture Capital

The dramatic changes that have characterized the world's economic system in recent decades have been fueled, in part, by significant changes in the flows of capital across international boundaries. Foreign investment in a number of forms has increased substantially. One of the most important types of foreign investment has been the use of venture capital to spur the development of new high technology- related activities. Geographers and other social scientists have described the uneven spatial distribution of venture capital flows, and they have identified many factors that seem to affect the pattern and magnitude of these flows. This project will provide a more detailed analysis of investment funds in the United States and the United Kingdom in order to expand knowledge about the processes, links, flows, and outcomes of international venture capital activities originating in these two nations. Working collaboratively with a British geographer, the American investigator will interview fund managers to identify international investors and obtain more detailed descriptions of their decision-making processes. Data about venture capital flows also will be examined using discriminant analysis to highlight underlying influences on capital flows. This project will provide a comparative test of basic models of venture capital flows and will add to basic knowledge about the spatial choreography of international venture-capital activity and the changes to start-up investment processes that occur when operations move to an international level. The specific data gathered in this project also will become a basis for these and other investigators to later test other hypotheses and models about international capital movements.